CCF: Small: Accelerating Irregular Algorithms using Cache-Coherent FPGA Accelerators

Until recently, FPGA acceleration of computations has largely focused on algorithms that exhibit a high degree of regularity and predictability in their parallelism and memory access. The advent of high-capacity FPGA accelerators connected to the processor and main memory through a high-performance cache-coherent interconnect enables algorithms with irregular parallelism to be considered. These irregular algorithms, including many data analytic and machine learning kernels, operate on very large, memory-resident, pointer-based data structures. This project will study the opportunity to accelerate irregular algorithms for performance and energy efficiency on emerging cache-coherent FPGA accelerators. The outcome of this investigation has potential for practical commercial impact by helping to establish cache-coherent FPGA acceleration as a viable new platform option for accelerating irregular algorithms that are fundamental to datacenter workloads. This project will also provide valuable training to both graduate and undergraduate students, and improve graduate-level coursework.

Instead of the traditional "off-load" model of FPGA acceleration, this project seek to develop a new tightly-coupled FPGA-processor collaboration model that takes advantage of the low-latency, fine-grain shared-memory interactions between the processor and FPGA that are now possible. The project studies fine-grain concurrent mappings of irregular algorithms where the processor and FPGA work together---each leveraging its own characteristic advantages, e.g., large cache, high frequency ALUs for the processor and energy-efficient spatial hardware concurrency for the FPGA---to outperform what either can achieve alone. An integral part of the investigation is also to develop new insights toward what should cache-coherent FPGA accelerators ultimately look like, especially with the support for irregular algorithms in mind.